Acquisition of a Diode Laser for Noble Gas Geochemistry at Caltech

Laser heating is an essential technique for the extraction of noble gases from rock and mineral samples. The ability to deliver heat to a small physical region without incidental heating of the surroundings allows for miniaturization of vacuum systems, higher maximum achievable temperatures, and, most importantly, substantial reduction in analytical blanks. Laser heating has been an established technique for several decades, but new types of lasers and new ways to couple the laser power to the sample continue to diversify its application. The most important development in this field in the last several years has been the rapid proliferation of diode lasers which provide high power intensity with extremely high efficiency. This grant will provide funds to acquire a new 75 W diode laser system for use in the noble gas laboratory at Caltech.

The new laser system will be used for many different projects currently supported by the National Science Foundation. One important use will be traditional laser outgassing of apatite, titanite, zircon, and iron oxide samples for (U-Th)/He geochronology. This type of geochronology provides information on the cooling history of rocks and in certain cases on their formation age. A second application will be the use of the laser system for high temperature step-heating with excellent temperature accuracy and precision. This capability is important for determining the diffusivites of noble gases in minerals, which in turn is important in establishing the meaning of noble gas ages. For example, helium diffusion measurements indicate that He ages determined on apatite provide information on the time at which the sample cooled through ~65oC. The new system has sufficient power that it will also be used to outgas large masses (100 mg+) of sample to very high temperatures (>1600 oC). An important application of this capability is to the dating of geomorphic surfaces (e.g., glacial moraines or fossil river channels) using the accumulation of 21Ne from bombardment of cosmic rays in the uppermost few meters of rock at the Earth’s surface.